Geodesic currents on free groups

The main theme of this proposal is to study the dynamics and
geometry of automorphisms of free groups via geodesic currents. In
the free group case the Teichmuller space of a surface is replaced
by the so-called ``outer space" of a free group, introduced by
Culler and Vogtmann. Most of the existing work in this area
involved topologically inspired methods. A ``geodesic current" is
a measure-theoretic analogue of a closed curve. The geodesic
currents approach, that is being developed by the proposer in his
recent work, transfers the investigation into the setting of
measure-theoretic and symbolic dynamics, which is ``native'' for a
free group. This setting allows the use of the powerful machinery
of ergodic theory, measure theory and probability theory. The
project will concentrate on several specific topics where the
proposer has already made progress. These include: the
intersection form, generic stretching factors of automorphisms,
extremal entropy problems, the new compactification of the outer
space obtained via the Patterson-Sullivan embedding, random length
spectrum rigidity, ideal version of Whitehead's algorithm, and
others.

The outer automorphism group of a finitely generated free group is
one of the most mysterious and least understood objects in
Geometric Group Theory. This group is a (more difficult to study)
``cousin'' of the modular group of a compact surface, that plays a
fundamental role in many branches of Mathematics, such as the
Teichmuller theory, low-dimensional topology, hyperbolic geometry,
complex analysis, and so on. The proposal aims to investigate the
outer automorphism group of a free group by exploiting new ideas
from other branches of Mathematics, particularly the tools of
measure-theoretic dynamics. The subject of the proposal is related to the
study of patterns in infinite words, which is important in combinatorics,
and the action of substitution-like maps on such words. As the proposer's
work shows, there is also a connection, particularly via
the study of Whitehead's algorithm, with the complexity theory and
the study of practical (as opposed to ``worst-case" or theoretical)
behavior of various algorithms.